Travel to Attend: 32nd International Symposium on Electron,Ion and Photon Beams, Fort Lauderdale, Florida May 31 - June 2, 1988

This grant will facilitate increased University participation in the 32nd International Symposium on Electron, Ion and Photon Beams, to be held May 31 -June 3, 1988 in Fort Lauderdale, Florida. This is the outstanding conference on microfabrication; it is a cross-disciplinary conference that focuses in a way that few other conferences do on the complement of high resolution lithography, dry etch transfer, materials science, surface chemistry and innovative devices of reduced dimension. There are other conferences that address each of the subject areas separately, and to some extent, but not with the emphasis on microfabrication for the advancement of the science of microstructures. An important feature that distinguishes this conference is the archival publication of all accepted papers in the Journal of Vacuum Science and Technology; we may thus disseminate the important results of this conference to a wide audience.